Mathematical Sciences: Research in Harmonic Analysis

DMS-9501191 PI: Gross Gross will continue his research on operator-valued Bessel functions on domains of positivity, hypergeometric functions on higher-dimensional spaces, multidimensional extensions of Ramanujan's Master Theorem, and will generalize to the setting of symmetric cones, constructs from classical analysis and approximation theory related to Newton polynomials. Also, Gross will develop a theory of special functions that will apply to non-symmetric cones that arise in the theory of Lie groups, investigate intertwining operators associated to degenerate principal series representations of reductive Lie groups, and study special functions associated to light cones and the indefinite orthogonal groups of rank two. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.